Collaborative for Scholarships in Computing, Information Sciences, and Engineering

The Collaborative for Scholarships in Computing, Information Sciences, and Engineering at North Dakota State University is awarding scholarships to students pursuing computer science, management information systems, and computer engineering degrees who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from underrepresented groups including Native Americans and women. Scholars are being supported by activities such as capstone projects in computing education and mentoring. The project is making an impact in undergraduate computer science education in the state.